U.S.-France Cooperative Research: Development of a Polarized Pure Hydrogen and Deuterium Frozen-Spin Target

This three-year award will support U.S.-France cooperative research in nuclear physics between Arnold Honig of Syracuse University and Jean-Pierre Didelez of the University of Paris, Orsay. The objective of their research is the construction of polarized hydrogen and deuterium (HD) targets for use in nuclear/particle physics experiments at the Brookhaven Laser Electron Gamma Source and in a higher energy facility to be built at the Grenoble synchrotron. Polarized hydrogen and deuterium may be used as fuel for inertially confined fusion. Recent progress in the development of solid HD targets will now allow the physics community to use them in beam scattering experiments. The U.S. investigator brings to this collaboration considerable expertise in studies of the properties of polarized frozen hydrogen and deuterium and polarization techniques. This will be complemented by the French investigators expertise in developing extraction and transport techniques which are necessary to enable use of HD targets. The proposal combines unique expertise and allows for cost-sharing and sharing of techniques.